REU Site: Integrated Development of Bioenergy Systems

This University of Nebraska-Lincoln's REU Site will provide a research experience for undergraduates during the summers of 2009 thru 2011. This REU Site is supported by the NSF REU Program and by the Department of Defense through the Awards to Stimulate and Support Undergraduate Research Experiences (ASSURE) program. The REU Site program focuses on bioenergy research using microbes or plants. Ten students will receive hands-on research experience in one of twelve laboratories under the guidance of an experienced faculty mentor. Students will receive a $4,500 stipend for 10 weeks (June through mid-August). On-campus housing, travel to and from the lab, health insurance, and other minor costs are provided at no cost to participants. Research will be coordinated with seminars, lunches, career guidance, industrial exposure, group activities, and a research symposium. Students will get training in biochemistry, molecular biology, genetics, and the physiology of selected model systems. They will engage in a debate on how to achieve sustainable energy supply for meeting a key national challenge. Upon completion of the REU program, students will be better prepared for future opportunities as researchers in bioenergy, including graduate education. The program is open to all undergraduate students enrolled in biology, chemistry, or engineering. Underrepresented minorities and students from colleges with limited research opportunities are encouraged to apply. Lincoln is a safe, midsize city with diverse and inexpensive entertainment, extensive bike paths and over 100 parks. More information is available at http://www.unl.edu/summerprogram/program_bioenergy.shtml, or by contacting Laurie Einspahr ([email]; Tel 402-472-1106), or the Program Director, Dr. Paul Blum ([email]; Tel 402-472-2769).